The Future Grand Challenges of Computer Science and Engineering, Spring 2002

EIA 0137943
William Aspray
Computing Research Association

WORKSHOP: The Future Grand Challenges of Computer Science and Engineering

This effort supports a conference to ask the question: What is the nature of the future "grand challenge" problems in computer science and engineering? The conference organizers believe that many deep and exciting issues remain. The purpose of the proposed conference is to provoke "out-of-the-box" thinking and thus to hasten the next "golden age". The conference will serve as an experiment and possible prototype for a series of conferences on grand research challenges in computer science and engineering.